Testing A New Method for Continuous Global Circuit Monitoring

The objective of this research is to measure the vertical component of the electric field in the atmosphere using a modified radiosonde and field mill attached to a free balloon. The measurements will serve to verify an alternate technique using tethered kites by evaluating local meteorological influences which could affect the conductivity of the air or the apparatus. The measurements will be conducted on Christmas Island, Republic of Kiribati.